RAPID: Collaborative Research: The Impact of COVID-19 on Norms, Risk-taking, Information, and Trust

The novel coronavirus (COVID-19) has hit countries around the world hard and is likely to have both short-run and long-run impacts on health behaviors, social norms, and trust in government and other organizations. In the short run, governments and health organizations provide extensive information and recommend behavior to avoid contracting the disease and spreading it to others. This research involves surveys to figure out whether and to what extent people follow recommendations and change behavior. Because the research team has been following a sample of university students for several years, the team already knows a lot about them, and this facilitates an understanding of variation in compliance with recommendations. For example, risk-tolerance and trust in organizations are likely to matter. The team is exploring how people process information about the virus, and how that affects their beliefs about the risks to themselves and others. The researchers also are examining the impact of the COVID-19 outbreak on social norms, and how those change over time. The second wave of the study looks for longer run impacts. The results of this study will be useful in shaping future policies and communications about health risks, especially during epidemics and other health crises.

The researchers make use of previous samples of subjects to test the impact of COVID-19 information and recommendations on behavior, social norms, trust in each other and institutions, and risk-tolerance. They have four areas of study. The first is how people process “noisy” information in the context of COVID-19. Prior research by a team member has shown that some individuals tend to misunderstand such information to their benefit. The teams adapt the methodology and protocol of the prior work to examine how individuals interpret COVID-19 information, and how this affects their beliefs about their own vulnerabilities. Second, the team studies the impact of COVID-19 on norms of behavior, including those directly related to the virus (social distancing, hand-washing), as well as norms of trust, sharing and in-group favoritism that may be shifting or newly emerging in response to COVID19. Prior work by a team member developed a methodology for eliciting social norms, and has shown that norms evolve in response to social influence. Third, they explore the impact of COVID-19 on interpersonal trust and trust in institutions, which significantly impacts willingness to follow government and organizational recommendations. Prior work by team members used incentivized games and surveys to study trust and reciprocity in natural disaster settings. Finally, they look at risk perception and risk taking related to COVID-19. Using incentivized measures of risk tolerance, and survey measures of domain-specific risk perceptions and behavior, the team explores the relationship between risk aversion and behavior, but also how the advent of COVID-19 has changed preferences for risk-taking. In these ways prior knowledge about the subjects provides an opportunity to study the impact of a national health catastrophe on information processing, social norms, trust and reciprocity and risk-taking.